Enhanced Mathematics, Computer, and Engineering Technology Scholarship (EMCETS) Project

Scholarships are being awarded to 29 academically talented, low-income students majoring in mathematics, computer science and eligible fields of engineering technology. The program is providing faculty mentoring to all scholarship recipients and tutoring to aid in the transition from high school to university level studies. Special efforts are underway to aid the students in overcoming the barrier presented by traditionally high attrition rate courses. Both cooperative work programs and research participation are available to the students.